Laboratory for Multimedia Signal Processing and Communication

9724281 Akansu, Ali New Jersey Institute of Technology Laboratory for Multimedia Signal Processing and Communication New Jersey Institute of Technology (NJIT) is acquiring a high speed computing, data storage and retrieval facilities for processing, compressing and displaying real-time image and video sequences. This equipment will support research projects in image/video processing and compression, and transmission over wired and wireless networks. Additional image and video communication equipment will be acquired to support research projects on channel characterization, performance analysis and simulation for image and video communication. NJIT, Princeton University and Rutgers University are founding partners of a recently established New Jersey Center for Multimedia Research (NJCMR). NJCMR has been designated as a Research Excellence Center by the New Jersey State Commission of Science and Technology with a funding level of over $1 million per year for the coming 5 years. The MRI-funded equipment will form part of a new laboratory for Multimedia Signal Processing and Communication to support research projects within this Research Excellence Center. NJIT has a leading position in the State as a distance learning provider and the requested equipment will also be used to support multimedia technologies research and their application for educational and learning environments, as well as in advanced-level graduate course work on multimedia signal-processing, compression and communication.